An ERC-CREST Partnership in Distributed and Computational Systems

CARTER 9730381 This award provides funding for an Engineering Research Centers (ERC) Program/Centers for Research Excellence in Science and Technology (CREST) Program Partnership between the Engineering Research Center for Computational Field Simulation at Mississippi State University (MSU) and Florida A&M University and Florida International University CREST Center for Distributed Computing, entitled "An ERC-CREST Partnership in Distributed and Computational Systems." This partnership will be initially founded on collaboration in four research projects: (1) The Hector Run-Time Environment; (2) Data Compression and Visualization using Wavelets; (3) Engineering Distributed and Parallel Software; and (4) Application of Parallel Computing Environments to Molecular Reaction Theory. The partnership will increase interactions and improve the educational experiences of students at all three institutions with the additional exposure serving to attract more students, particularly minority students into research careers.